Effect of High-Grade Metamorphism on Seismic Velocities of Rocks

This research is to investigate the possible changes in compressional and shear-wave velocities associated with increasing metamorphic grade by determination of seismic velocities of samples from the Pikwitonei-Sachigo subprovinces, northwestern Superior Province, in Manitoba, Canada. Measurements will be made at laboratory confining pressures up to 600 MPa. Particular emphasis will be placed on data across the amphibolite-granulite facies boundary. In addition to addressing this important question, the study will also provide key rock properties data for interpretation of geophysical data to be collected by the planned Canadian LITHOPROBE project in the northwestern Superior Province.